Courseware for Fluid Dynamics

The objective of the research is to develop courseware to enhance student understanding of fluid dynamic concepts and his/her awareness of complex phenomena. The courseware will be based on an existing fluid flow modeling computer program. Development of one classroom fluid flow experiment will be undertaken.